Long-Range Atmospheric Transport and its Relationship to Air/Snow/Ice Chemistry at Summit, Greenland

This is one of four coordinated projects that will make use of the camp facilities established on the ice sheet in the interior of Greenland as part of the GISP-2 ice core drilling effort, in order to investigate how atmospheric trace elements are deposited on the ice and what kind of changes they undergo as they are being incorporated into the ice. An understanding of such processes is necessary in order to properly interpret the proxy climate data that can be recovered from ice cores. While significant progress has been made recently in extracting and analyzing ice cores, progress in understanding the air to snow transfer process for reactive chemical species has lagged behind. The goal of this project is to provide a detailed understanding of the atmospheric transport processes that influence the precipitation chemistry over the Greenland ice sheet. The examination of variations in air-snow-ice chemistry measurements during the time for which reliable global meteorological archives are available will allow the extrapolation of the ice core chemistry-atmospheric transport link backward in time to periods for which meteorological information does not exist. Knowledge of long-range atmospheric transport is basic to the air- snow transfer process. The recovered ice cores contain impurities and components whose sources are distant, and which were carried by the atmospheric circulation to the interior of Greenland. Variations in the physical and chemical composition of the ice along the core reflects to a large extent variations in atmospheric circulation patterns. As part of this project a long-term atmospheric trajectory climatology will be prepared as well as an examination of the seasonal and interannual variability of observed transport patterns.